Compaction Induced Lateral Earth Pressures

The objective of this research is to investigate the factors controlling the magnitudes of the lateral earth pressures induced by compacting soil. The project will include laboratory tests to investigate the effects of compaction method, compactive effort, dry density, and water content on the magnitudes of compaction induced earth pressures. Tests will be conducted in a model test bin and in compacting soils in layers; the induced lateral pressures will be measured. These tests will provide a means of studying variations in pressures depending on the direction of roller travel and will provide a basis for assessing the effectiveness of available analytical techniques under carefully controlled conditions. This effort will take a fundamental approach to a basic geotechnical engineering process and will extensively use a new type of instrumentation, the temperature compensated mercury oedometer.